Visually Guided Agents

The project focuses on perception issues, with the goal of achieving a flexible and consistent representation of large scale man-made environments that can be acquired via visual sensing. The work will enhance the autonomy of robotic agents and their interactions with humans, or used to help humans with impaired vision.